13th International Symposium on Flavins and Flavoproteins to be held August 29-September 4, 1999 at the University of Konstanz, Konstanz, Germany

9900534
Claiborne
The area of flavins and flavoproteins is a broad, but clearly and
simply defined one. It covers all aspects of work pertaining to the
chemistry and biology of compounds based on the isoalloxazine nucleus
and on a very few closely related structures. Because of the
extraordinary versatility of flavin as a prosthetic group and its
involvement in a variety of important biological oxidation and reduction
processes, this area continues to expand rapidly. Interest in flavins
ranges from theoretical chemistry to medical aspects. The 13th
International Symposium on Flavins and Flavoproteins is at
the University of Konstanz, Konstanz, Germany, August 29-September 4,
1999, as one of a series which has been organized at 3-year intervals
since 1965. The last symposium was held in Calgary, Alberta in 1996.
Because of the continued and increasing pace of research in this area,
it is important that regularly scheduled meetings be held. Review
lectures will cover the entire field and the meeting should bring
together scientists from all over the world from a wide variety of
disciplines, and promote valuable discussion and exchange of
information. In addition, it should serve the purposes of keeping
existing workers fully up to date with all aspects of the subject and of
initiating young investigators into this important area of research.

Riboflavin (vitamin B2) is an essential nutrient in humans; the
biochemical basis for this requirement can be explained by the fact that
riboflavin derivatives (FMN and FAD, as abbreviated) serve as essential
coenzymes for a large number of chemical processes important in human
metabolism and nutrition. In many cases the corresponding flavo-enzymes
are involved in the conversion of chemical energy from foodstuffs,
directly or indirectly, into ATP, which is the cellular form of stored
energy required for essential biochemical functions. Therefore the
study of flavins and flavoproteins has direct consequences for human
physiology and since 1965, researchers from the U.S. and around the world
have convened every three years to share and discuss their latest
findings in flavin and flavoprotein research. In 1999 the 13th
International Symposium on Flavins and Flavoproteins is in
Konstanz, Germany; the funds provided by this NSF award are used
specifically to assist young investigators (primarily Ph.D. students and
post-graduate fellows) from the U.S. in attending this conference.